Research Experiences for Undergraduates in Chemistry at Georgia Institute of Technology

Thomas Moran and other members of the School of Chemistry and Biochemistry at Georgia Institute of Technology are being supported to provide a Research Experiences for Undergraduates (REU) site in chemistry. For the period 1996-98, ten undergraduate students will spend ten weeks each summer actively engaged in basic research projects drawn from the traditional areas of chemistry and biochemistry. Participants are recruited nation-wide, with many coming from the southeastern U. S. In addition to individual research projects, students make oral presentations and participate in regular research conferences which acquaint them with the work in other summer projects.